CADRE: SimpleScalar: Industrial-Strength Computer Systems Simulation

9975286
Burger, Doug
Keckler, Stephen
University of Texas Austin

CADRE: SimpleScalar: Industrial-Strength Computer Systems Simulation

This award supports enhancement to the functionality, reliability and accessibility of the SimpleScalar tool suite of microprocessor simulation tools. The tools will provide the computer architecture research community with access to accurate and validated tools and a shared code base to enable reproducibility of results. Educational users will be able to integrate the tools into undergraduate and graduate curricula and provide students access to experimental systems research.